Alternative Effective Engineering Workshops

This project involves three undergraduate students from Worcester Polytechnic Institute who will be performing a special investigative into the effectiveness of Workshops on the receipt of unsolicited proposals by NSF based on the specific discipline of the workshop.